Bridging the Spatial and Temporal Scales in Dense Granular Systems Description of Dense Granular Shear Flows

Kondic
DMS-0605857

The project centers on analyzing and understanding the
nature of information propagation through dense granular systems.
The properties of the signals are then used to deduce the basic
physical mechanisms of the force and energy transmission. These
mechanisms have been the subject of considerable study lately
because it is crucial to understand whether the forces between
granular particles propagate in a manner that can be described
under an elliptic, hyperbolic, or parabolic framework. The
starting point of this project is development of large scale
discrete element simulations that are used to analyze response of
dense granular systems to space- and time-dependent
perturbations. The results of the simulations are then employed
to help formulate effective models for bridging the scales
between micro (grain scale) and meso (hundreds or thousands of
grains) descriptions of granular systems. Both static and
dynamic granular systems are considered, making it possible to
analyze the interplay between granular dynamics and signal
propagation. This setup also allows for considering some
important features of dense granular flows, such as the role of
force anisotropy and underlying microstructure. The project is
carried out in close collaboration with experimental work
performed at Duke University.

Dense granular systems are one of the most challenging
systems in the field of soft condensed matter, in particular
because they are subject to jamming, and fall in between solid
and liquid states of matter. Analysis of signal propagation
through these systems allows us to understand how granularity on
a micro scale influences macroscale behavior. The novel research
techniques used here also can be applied to other soft condensed
matter systems that experience jamming, such as emulsions,
colloids, gels, and foams. In addition, signal propagation
through granular systems is of considerable importance in a
number of practical problems including oil recovery,
vibrofluidized beds, and some important humanitarian efforts,
such as detection of land mines. The project addresses basic
issues in statics and dynamics of dense granular systems;
understanding of these basic concepts allows for future progress
in developing better models needed for numerous applications of
granular materials.